Completion of a Minature CIM Unit

Provision to students of a complete miniature computer integrated manufacturing (CIM) lab unit is the objective of this project. A conveying system, positioners, transfer stations and a CNC robot will be added to existing equipment to achieve a truly automated CIM instructional system.